Dissertation Research: Pollen Export and the Evolution of Distyly: Tests of a Model

This proposal outlines three experiments designed to test predictions of a new model of the evolution of distyly. This model differs from the most widely accepted model by assuming a different ancestral state and by focusing on the efficiency of pollen donation, as well as receipt. It also differs in predicting that the morphological features of distyly evolve prior to the compatibility groups. The first experiment examines pollen transfer by bumblebees between plexiglass flowers with varying anther and stigma heights. Populations of flowers will be created with the combinations of organ heights outlined in the models, to see whether the purported changes in organ heights bring about the increases in pollen donation predicted. The other two experiments will take place at the La Selva Biological Station, using Psychotria suerrensis and one of its butterfly pollinators. In the individual-level experiment, pollen donation will be observed on controlled sequences of flowers and pollen carryover will be measured. In the population-level experiment, the type of pollen available in an isolated population will be controlled by emasculation of all other flowers of one morph and half of the flowers of the other morph. This will allow a direct comparison between pollen donation to like and unlike morphs. As well as being among the first designed to test the new model, these experiments contribute to the study of pollination biology. In addition, the field work will be conducted on a member of a distylous genus which has received relatively little study, despite its large size and wide distribution.